Red Raider Mini-Symposium 2005: Geometry and Statistics and Image Analysis

Red Raider Mini-Symposium, November 17-19, 2005 : "Geometry, Statistics
and Image Analysis" focuses on nonparametric statistics on manifolds,
analyzes on shape spaces, saddlepoint approximations and systems
theory leading to frontiers of science in medical imaging, system
reliability, survival analysis, pattern recognition and
bioinformatics. Principal speakers are Rudy Beran, University of
California Davis, internationally renowned for his contributions
to robust statistics, directional data analysis, and
bootstrapping; Rabindra Bhattacharya, University of Arizona,
internationally renowned for his contributions to large sample
theory, Edgeworth expansions and bootstrapping, statistics on
manifolds and stochastic partial differential equations; Ronald
Butler, Colorado State University, internationally renowned for
his contributions to saddlepoint methods, systems theory and
stochastic networks, special function approximations, robustness
and likelihood inference; John Kent, University of Leeds, United
Kingdom, internationally renowned for his contributions to
multivariate statistics, shape analysis and stochastic models for
protein structure, robustness, spatial statistics, tomography;
Peter Kim, University of Guelph, Canada, internationally renowned
for his contributions to the interface between geometry and
statistics, density estimation on Riemannian manifolds and
applications of statistics to image acquisition, Madan Puri,
Indiana University, internationally renowned for his contributions
to nonparametric statistics, splines, tests of normality, fuzzy
sets and measures, stochastic processes, statistics of directional
data, random sets, and time series and Anuj Srivastava, nationally
renowned for his contributions to "image understanding" which aims
to develop automated systems that can match human abilities in
analyzing images.

This symposium is conceived to bring together outstanding researchers
working in the interface of geometry, statistics and image
analysis and consists of a series of lectures by outstanding
scholars in vibrant areas of mathematics and statistics, with
important applications in astronomy and geophysics, homeland
security, medical imaging, computer vision and pattern
recognition. These lectures provide an opportunity to learn about
new research venues for the members of the statistical community,
especially early career researchers and graduate students
including women and under represented minorities. This
mini-symposium provides a perfect medium for interaction and
collaboration between the conference participants and the
distinguished speakers. It will be very helpful for shaping future
directions of statistical research that address problems of high
societal impact.